A Support Environment for Parallel-Program Development

This research describes a support environment for parallelism exploitation in ordinary (scientific) programs. The environment will be designed for mapping programs with real-time constraints and/or massive compilation requirements onto parallel computers. It is envisioned as part of a scientist's workstation, to serve as a front end for the NSF Supercomputing Center at Cornell. Within this system, the user may control the parallelization process while the system deals with the burdensome details of architecture, correctness-preservation and synchronization. Through a graphical interface the user suggests what should be done in parallel, while the system performs the actual changes using semantic-preserving transformations. If a request cannot be satisfied, the system reports the problem causing the failure. The user may then eliminate the problem by supplying guidance of information not explicit in the code.